Lower Mississippi Delta RSI Development

9452721 Ohme The project will conduct a regional self-study to determine optimum strategies to accomplish systemic educational reform and economic development in a region characterized by high poverty and lack of resources. The supervisory Steering Committee will establish Task Forces which will conduct a series of town meetings to facilitate local and regional partnerships, collect and analyze baseline data, and provide recommendations to the Steering Committee, for the development of an integrated plan for sustainable education reform throughout the region. The Steering Committee will hold a series of four area conferences, to inform and include local representatives in the planning and development process.